Organization and Conduct of the Ninth American Conference on Crystal Growth (ACCG-9) in Baltimore, MD on August 1-6, 1993

9310144 Witt This proposal is for the organization and conduct of the 9th American Conference on Crystal Growth (ACCG-9) to be held in Baltimore, MD on August 1-6, 1993. The conference will examine all aspects of bulk and thin film crystal growth, with particular emphasis placed on crystal growth fundamentals, optical materials thin film epitaxy, bulk growth, and novel materials and techniques. Participants are to come from many countries around the world. %%% This project is for the organization and conduct of the 9th American Conference on Crystal Growth (ACCG-9) to be held in Baltimore, MD on August 1-6, 1993. The conference will examine all aspects of bulk and thin film crystal growth. Experts from institutions around the world will attend this conference. Exchange of information at the conference will enhance understanding of the crystal growth theories and practices. ****